Practical New-Generation Reusable Software Components

This research is to continue prior NSF supported research to address various technical problems that impede progress toward software reuse. A comprehensive approach to reuse has been developed, which permits people to write formal specifications of reusable components, to certify their correctness using both verification and testing, and to build particularly efficient implementations for them. The overall objective of this project is to demonstrate the practicality of a new generation of formally specified, certified, and efficient reusable software components. Specifically, the researchers intend to design understandable formal specifications for a representative sample of general-purpose reusable software components; to show how to use these specifications to verify and to test the correctness of both implementations of these modules and their clients; and to apply several novel data structures and algorithms to build efficient implementations of these components. Successful completion of the project will include among its results (1) a catalog of formal specifications of reusable software components having certifiably correct and efficient implementations, and (2) a "handbook of design" containing explicit guidelines for developing other reusable components in a similar way.